Active Experiments/Electric Fields

This grant will support a study of several effects of magnetic field aligned or Birkeland electric currents. The projects begin with a standard model magnetosphere to which various Birkeland current systems will be added. The first additions will involve typical simplified auroral current systems. Then several actual current patterns which are derived from specific radar and ground magnetometer measurements will be added. The purpose of this part of the project is to study distortions in the direction and magnitude of electric fields as they are projected from the ionosphere to the outer magnetosphere in the presence of Birkeland currents. The next portion of the study involves the formation of magnetic flux tubes. These tubes are generated by perturbation magnetic fields that are driven by the Birkeland currents. Such tubes may be of special importance near the westward traveling surge of an auroral substorm, near small bright auroral spots, and over the polar caps. Finally, a preliminary study of induced electric fields that are associated with the diversion of cross tail electric currents to the ionosphere during a magnetic storm will be initiated. The overall aim is to study the way in which electric currents modify the near earth environment.